Presidential Young Investigator Award: Improved Methods of Forcasting Construction Cost and Schedule Performance

The goal of this research is to develop a better way, or ways, to forecast construction project performance. It is intended to accomplish this by three separate, but coordinated research studies--two investigating cost forecasting and the other schedule forecasting. One of the cost studies and the schedule study will explore ways of applying knowledge-based expert system concepts from computer science to these forecasting problems. Quantitative, as opposed to heuristic, methods of forecasting cost performance will be investigated. In future years, other aspects of construction project performance such as quality, safety, and organizational issues will be investigated, but cost and time are the crucial two issues for this initial investigation.